WORKSHOP: Workshop on Bio-Inspired Computing, Arlington, VA , October 2007

The Computing Research Association will organize, staff, and administer this workshop to explore the research area of bio-inspired computation and encourage ideas that will spur development of this emerging field, as well as view presentation from current PIs in the biocomputational section of EMT. The workshop will help inform the multi-disciplinary bio-inspired computation community about current research efforts, enable dialogue and opportunities for future collaboration and cooperation, as well as update Federal and State agencies.